Mathematical and Computational Methods for Planning a Sustainable Future II

The project will develop modules for grades 9-12 that integrate mathematics, computing and science in sustainability contexts. The project materials also include information about STEM careers in sustainability to increase the relevancy of the content for students and broaden their understanding of STEM workforce opportunities. It uses summer workshops to pilot test materials and online support and field testing in four states. Outcomes include the modules, tested and revised; strategies for transfer of learning embedded in the modules; and a compendium of green jobs, explicitly related to the modules. The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. The STEM+Computing Partnerships (STEM+C) Program is a joint effort between the Directorate for Education & Human Resources (EHR) and Directorate Computer & Information Science & Engineering (CISE). Reflecting the increasing role of computational approaches in learning across the STEM disciplines, STEM+C supports research and development efforts that integrate computing within one or more STEM disciplines and/or integrate STEM learning in computer science; 2) advance multidisciplinary, collaborative approaches for integrating computing in STEM in and out of school, and 3) build capacity in K-12 computing education through foundational research and focused teacher preparation

The project is a full design and development project in the learning strand of DRK-12. The goal is to enhance transfer of knowledge in mathematics and science via sustainability tasks with an emphasis on mathematical and scientific practices. The research questions focus on how conceptual representations and the modules support students' learning and especially transfer to novel problems. The project design integrates the research with the curriculum development. It includes a mixed methods data collection and analysis from teachers and students (e.g., interviews, content exams, focus groups, implementation logs). Assessment of student work includes both short, focused problems in the content area and longer project-based tasks providing a range of assessments of student learning. The investigators will develop a rubric for scoring student work on the tasks. The curriculum design process includes iterations of the modules over time with feedback from teachers and using data collected from the implementation.